Devolatilization oif Polymer Melts

The parameters affecting foam-enhanced devolatilization of polymer melts is investigated. A model is developed to describe this process. This model could be used subsequently for the design and selection of devolatilization equipment. The elementary processes occurring in devolatilization equipment (rotating melt pools, melt films with surface renewal) are studied experimentally in a specially designed laboratory apparatus. The parameters being studied include exposure time, agitation time, surface to volume ratio, melt viscosity, vapor pressure of the volatile contaminant, vacuum level, and concentration level of the contaminant.